Group Travel for U.S. Participants in the 10th InternationalSymposium on Computer Arithmetic; June 26-28, 1991; Grenoble, France

The 10th International Symposium on Computer Arithmetic will be held June 26 through June 28, 1991 in Grenoble, France. The Symposium Chairman is Dr. Jean-Michel Muller of LIP-IMAG. This international symposium is the tenth in a series and the third to be held outside the U.S. It is crucial to U.S. researchers to be able to attend this symposium. Travel funds requested in this proposal will allow more U.S. researchers to participate in the symposium, to present research results, and to exchange research ideas with their European colleagues.